A Hypertext-based Study Guide for Introductory Astronomy: Defusing Misconceptions

The project is developing a database containing 1100 highly-linked hypertext questions that provide a computer driven interactive study guide for introductory astronomy for non-majors. The goal is to complement traditional text and lecture materials with a new teaching tool designed to improve logical thinking by allowing students to explore and correct natural misconceptions. The hyperlinked environment enables (1) presentation of multiple levels of information and reasoning; (2) the possibility for deeper exploration by motivated students; and (3) rapid feedback for the instructor and for the students. The 100 questions will be selected to span the range of material commonly covered in introductory astronomy. This teaching tool can provide students with a visually attractive, intellectually stimulating alternative path for learning and honing their logical skills. The study guide will be accessible at any Internet node via access to the World Wide Web using public-domain NCSA Mosaic software on IBM PC's, MacIntoshes, or Sun workstations. The project is conducting a controlled test of this instructional tool in an introductory astronomy course. At the same time it is being made available at all interested sites. The level of presentation in the study guide also makes it accessible to advanced high school science students.